Algebraic and Geometric Topology

Abstract

Award: DMS-0305712
Principal Investigator: R.L. Cohen, S.P. Kerckhoff, R.J. Milgram

This project consists of research programs in a broad range of
topics in Algebraic and Geometric Topology. The principal
investigators, Professors R.L. Cohen, S.P. Kerckhoff, and
R.J. Milgram are senior topologists whose research interests
cover a large number of areas of topology and related fields.
Included in these projects are the study of core topological
questions such as the study of 3 - dimensional geometry, the
study of the topology of complex and related structures on
manifolds, and topological invariants of finite groups. In
addition it includes applications of topological methods to
engineering questions in the field of Robotics.

The topology of 3-dimensional manifolds is intimately connected
to differential geometry, particularly to homogeneous structures
like Euclidean, spherical, and hyperbolic geometry. Of these,
hyperbolic geometry is the most prevalent. On a closed
3-manifold a hyperbolic structure, if it exists, is unique by the
Mostow Rigidity Theorem. Thus, any geometric invariant is a
topological invariant and can be used to distinguish different
3-manifolds. When the 3-manifold has boundary, it can have a
large parameter space of hyperbolic structures; in this case, the
qualitativeq properties of the structures as one varies over the
parameter space are of particular interest. Kerckhoff studies
hyperbolic structures on 3-manifolds, trying to describe the
behavior of these geometric structures under a topological
procedure, called Dehn surgery, and in the presence of
singularities modeled on a cone. R.L. Cohen is pursuing several
projects that involve studying algebraic topological aspects of
questons stemming from geometry. These projects lie under the
following general headings. 1. The topology of moduli spaces of
holomorphic curves in complex and symplectic manifolds. 2. The
homotopy type of the stable mapping class group and the Mumford
Conjecture. 3. Properties and applications of holomorphic
K-theory. R.J. Milgram will pursue questions involving the
cohomology of finite simple groups, as well as applications of
the topology of configuration spaces to questions in the design
and behavior of robotic arms.